Mathematical Sciences Computing Research Environments

WPCN 2 B V P Z Courier 10cpi ? x x x , {^ x 6 X @ 8 ; X @ HP LaserJet IIID - BACK HPIIIDB.PRS x @ , \ , j 5{X @ 2 < L 3| x The Department of Statistics at Carnegie Mellon University will purchase a high performance color workstation and a video scan converter. This equipment will be dedicated to support research in the mathematical sciences and will be used for several research projects, including in particular: 1. ` ` Nonstationary Time Series and Oceanographic Data by Ngai Hang Chan and Mark J. Schervish x ` 2. ` ` Dynamic Graphical Analysis of Spatial Time Series by William F. Eddy and Michael M. Meyer x ` 3. ` ` Hierarchical Modeling by Robert E. Kass and Larry Wasserman x `